Mathematical Sciences: Connecticut Logic Seminar

9504870 Scowcroft This award in partial support of the Connecticut Logic Seminar will allow the seminar to invite at least one outside speaker per month for each of the next three nine-month academic years. The seminar typically ranges over most areas of current interest in mathematical logic and has had a successful history of weekly meetings since its founding in 1974. Participating institutions represent Connecticut and several nearby states. ***